WORKSHOP: Workshop on Cultural Property, Creativity, and Indigeneity Under the New Bolivian Constitution (Four day workshop in Bolivia)

Bolivia adopted a new constitution in 2009; the new constitution provides an opportunity to analyze
how people understand a constitution, and how a national constitution intersects with international
legal frameworks. The workshop is guided by the questions of whether or not and how Bolivians,
as they go through constitutional change will propose alternatives to globally prevalent intellectual
and cultural property frameworks. These global regimes too often discussed only at international and
national levels--have fallen short as regards recognition of collective creativity, access in unequal
social terrains, and resolution of state-indigenous contradictions about heritage.

Working from the ground up, the workshop will initiate a dialogue
about indigenous rights and cultural property that does not dismiss economic motivations,
considers a multiplicity of proprietary systems, addresses already identified social values of
creativity and acknowledgement, and locates cultural property claims in relation to other local
indigenous struggles. As the poorest and most indigenous country of South America, Bolivia poses
pressing local and globally germane challenges for intellectual property, which in Bolivia is viewed by some as an
external legal mechanism designed to deny majority access to knowledge, and by others as a
route out of the nationʼs economic woes.

This project will facilitate discussion among Bolivians through (a) an intensive four-day participatory
workshop on cultural and intellectual property involving twenty participants who do creative
performance work, represent indigenous organizations, or work in local media, and (b) a mediabased
dissemination program. Principal investigators from the U.S. and the U.K. and two
Bolivian research assistants will draw on collaborative ethnographic methods to coordinate the
workshop and media-based dialogues.

Workshop proceedings will be summarized for international circulation through a Spanish-English
bilingual website. Before and after the workshop, television and radio discussions (sometimes in
indigenous languages) will further disseminate these conversations among Boliviaʼs poorer urban
and rural populations where Internet access is limited. Through the workshopʼs activities, local
voices rarely heard in the international context will be brought into broader global debates, and
Bolivians will be provided with greater access to diverse perspectives on cultural property.
Through the website and subsequent reports, connections will be sought with other international
and national entities engaged in these issues.